CAREER: Multivariate Visualization of Importance-Varying Data

This project will investigate techniques for the display of importance-varying data in both two-and three-dimensional data domains. The approach to this problem will emphasize consideration of a) the perceptual characteristics of human viewers, b) dynamically manipulable display environments to increase the number of variables that can be clearly displayed, and c) experimental validation of the techniques developed. Portions of the project will be conducted in collaboration with the researchers in application fields such as meteorological monitoring, medical imaging, and public health decision-making. Specific project objectives include construction of a survey of existing importance visualization techniques, development of new techniques to represent importance-varying data, comparison and validation of techniques identified or developed, construction of a dynamic environment for the exploration of importance-varying data and the development and dissemination of perceptual principles for effective multivariate display.